Travel to Attend: UNESCO/IAH Intl Symposium Ground-Water Protection Mgmt in Rural Areas at the 19th Congress of Intl Assoc of Hydrogeolgists Karylovy Vary, Cz , Sept 6-16, 1986

This award is for an Individual International Travel to participate in the UNESCO/IAH International Symposium on Groundwater Protection Management in Rural Areas at the l9th Congress of International Association of Hydrogeologists. The Symposium and the Congress will be held at Karlovy Vary, Czechoslovakia on September 6-l6, l986. The traveler will present an invited keynote paper. He will serve as a representative of the United States, during the Congress of an international jury which will judge papers submitted for an international competition of young scientists. European scientists are very active in the study of pollutant travel and their interactions with the environment and in the development of effective groundwater protection methods. Meeting with these scientists and discussing with them the recent advances on groundwater research wil be beneficial.